Equipment for Signal Processing/Communication Laboratories

This project permits undergraduate students to have hands-on experiences with state-of-the-art equipment in this institution's signal processing and communications laboratory. The laboratory that supports this project includes: HP Spectrum Analyzers, Wavetek function generators, Tek digitizing oscilloscopes, TI Digital Signal Processing 320's, Tandy 4000's with hard disks, color monitors and graphics display adapters. Using this laboratory equipment, students obtain a solid background in linear systems, signal processing and communication systems as well as experience with the tools they will use in industry. This award is being matched by an equal sum from the grantee.